Object-Orientation Across Undergraduate Computer Science Curricula

9353958 Lim In the past few years, object-oriented technology has become one of the dominant technologies in the computing industry. In a recent survey, it was reported that over 75% of the Fortune 100 companies have adopted object technology to some degree for their computing needs. This is in response to the increasing software maintenance cost and backlog that is so prevalent in the software industry. Because object-orientation is becoming one of the primary means for problem solving, the need to teach object-orientation in undergraduate curriculum is growing. The purpose of this project is to provide a two-week summer workshop for faculty who are from institutions which lack computing facilities to teach object-orientation and thus do not have any formal training in this area. The objectives are to introduce (1) object-orientated analysis and design, (2) object-oriented programming, (3) object oriented databases, (4) integrating object-orientation into computer science/information system curriculum, and (5) teaching object- orientation to undergraduates. The workshop includes lectures and laboratory sessions in which participants have hands-on exercises on each of the above main topics. Participants also plan a course or course unit utilizing object-oriented technology at their institutions during the subsequent academic year. The tools used in the workshop include inexpensive or free software that are easily obtainable by most universities and colleges. ***